10th U.S. Japan Bridge Engineering Workshop

9400752 Douglas The U.S.-Japan Workshop on Bridge Engineering is an annual meeting between American and Japanese bridge engineers, which is conducted under the auspices of the U.S.-Japan Panel of Wind and Seismic Effects of the UJNR program. this 1994 meeting includes a two-day workshop with technical presentations of the participants related to recent advances of bridge engineering and a study tour of bridge structures and orginizations. The workshop will be held at Lake Tahoe, Nevada in May 1994, and will be preceded by a one-day meeting between American and Japanese researchers to investigate the possibilities for further cooperative U.S.-Japan research on bridge engineering issues. ***